Understanding the Differences in Shape Cognition Between Physical and Virtual Scenes

People have considerable experience using 3D graphics in scientific visualization, but very little understanding of exactly what aspects of those 3D graphics give us the most perceptual benefit. As a consequence, we do not understand how to optimize and improve our use of this tool. In this project, the PIs will perform human-subject tests to test the effectiveness of various depth cues on the perception of 3D scenes, and to quantify the difference in effectiveness between perceptual depth cues in synthetic scenes and in "real" scenes as presented by physical models. The findings will have significant implications for interactive computer graphics and scientific visualization in general, and for virtual reality in particular, where much effort and money are being invested to generate realistic synthetic scenes without any rigorous scientific knowledge of what the most convincing realistic-scene cues really are. This project should supply some of the answers.